An Interactive Introductory Astronomy Course

The project is developing an introductory astronomy course whose primary goals will be (1) to develop quantitative reasoning skills and independence in problem solving; (2) to expose students to the scientific use of computers; (3) to inculcate an understanding of the power and limitations of experimental data; (4) to develop critical thinking through scientific writing; and (5) to build on the appeal of astronomy to attract and retain more science majors. The approach emphasizes hands-on problem solving experience gained by working on projects built around a few themes, rather than the more passive learning inherent in delivery of a comprehensive body of material by a single professor in a traditional lecture setting. Students will be active participants in the classroom both collectively, through critical discussions of project goals, experimental techniques and analysis, and individually, through use of interactive software packages. The project makes extensive use of the MOSAIC hypermedia environment in developing software modules for the course, and eventually these modules will be available to colleagues at other institutions via the Internet. The course materials are being developed by a team of senior faculty and graduate students. The team approach benefits not only the undergraduates who are enrolled in the class, but also the graduate students who are provided with a mentored experience in designing courses and curricular materials, and thus a valuable introduction to teaching. An introductory course based on these goals and following this format will prove more successful than traditional classroom techniques in sustaining student interest in science and providing them with the basic skills they will need to understand, address, and solve technically complex problems throughout their lifetimes.